Internet Multimedia Applications Workshop

9452920 Ferguson The INTERNET MULTIMEDIA APPLICATIONS WORKSHOP is designed to: 1. provide training for 100 Nebraska teachers to use the internet to retrieve information concerning health care and direct connect software using NASA imagery from Voyager I and II, and the Viking spacecrafts to obtain information about space exploration. 2. network teachers with technology experts for continual on-line support through Phase II and beyond, and 3. prepare teachers to conduct Phase II with 4,000 students to participate in The Great Debate, National Priorities for tax dollars, health care or space exploration. During Phase I, United States Senators Bob Kerrey and Paul Simon will present a dilemma for debate, "National Priorities: should tax dollars be spent for health care or space exploration?" This interactive session with the senators, 100 on-site teachers, and teachers on-line in Iowa, Kansas, and Illinois, sets the stage for the four rotating hands-on training sessions with the award winning education/technologists. Teachers will develop and implement application skills in global technologies, such as internet, CD- Room, digitizing imagery, remote sensing imagery, E-mail, file transfer, and Gopher sites. Phase II is the implementation follow-up phase and occurs in the classroom as children use the internet resources and software to research information on health care and space exploration. The three week Great Debate occurs on-line with children among four states. This unique workshop and on-line debate will result in having 100 teachers and 4,000 children actively accessing internet resources and direct connect software from NASA. These teachers and children will serve as trainers for other teachers. Additionally, a viable network will be in place among teachers, researchers, scientists, and education technologists. An action plan is already in process to refine and replicate this technology/interdiscipli nary curricular model in other schools in other states. Another major accomplishment to result from this project is having children explore careers in science, mathematics, and technology and begin to fill the need of 700,000 more experts in these fields b 2010. It is intended for this project to also motivate and excite children about studying mathematics, science, engineering, and technology to propel United States children to be first in the world: a step toward the American 2000 goal. ***